Integrated Protein Classification Database System For Genomic and Proteomic Research

Computational approaches to handle the vast amounts of information in biology are increasingly important for deriving and evaluating hypotheses. Information management techniques to assemble a variety of different data are necessary. A proteomic database will be developed as a bioinformatics framework for genomic and proteomic studies. The integrated Protein Classification (iProClass) database will contain core components for the presentation of composite views of data that will include protein sequence, superfamily, motif and structure. All reports for each protein sequence will contain extensive cross-references and links. The system will be freely distributed view web and mirror sites and provide a resource for exploration of many features involving information from a number of sources. The modular and open architecture of the database will promote data integration in a distributed networking environment.